Particle Physics at the Energy Frontier

The experimental group at the Cornell Laboratory for Elementary-Particle Physics (LEPP) is transitioning from heavy quark physics to energy frontier physics. The research program includes contributions to software and operations for the CMS Experiment and analysis of early data at the CERN Large Hadron Collider. The group will make major contributions to the pixel detector, electromagnetic calorimeter, trigger, and core software for the experiment. The intellectual merit of the program lies at the heart of physics at the scientific frontier: matters of fundamental symmetries, the nature of mass, the dimensionality of space. The broader impacts include: bringing the challenge and excitement of LHC physics into LEPP's extensive program of outreach: to local K-12 schools, to the general public, and to undergraduate students.